CAREER: ATM and Wireless Networks: Theory, Experiments, and Applications

The proposal deals with open issues in ATM networks and mixed ATM wireless networks. The work will include four topics: 1) Scheduling in the ATM environment. Work will focus on generalizing their real-time scheduling algorithm, which minimizes the weighted loss at an ATM node, to a network and to non-real time traffic. 2) Traffic modeling and performance analysis for bandwidth allocation in ATM networks. Work will extend their analytical techniques to capture the queueing behavior over an ATM network for fairly general doubly stochastic arrival processes and address issues of self-similarity, transient analysis, and dynamic bandwidth allocation. 3) Video transmission over ATM networks. The PI will capture cell-jitter in order to size the receiver buffer appropriately and determine the startup delay. Further work will include error-concealment for transmitting video traffic in a lossy ATM medium and ways in which flow control can be implemented on non-real time traffic to improve the overall utilization in the network. 4) Integration of wireless and ATM environments. Work will focus on ways in which dynamic bandwidth control can be accomplished, and flow control and admission control in the mixed wireless environment can be addressed.